Inertia-Gravity Waves in Geophysical Flows

Smith
DMS-1008396

The project aims to better understand the role of
inertia-gravity waves in two highly relevant problems in
geophysical fluid dynamics: (i) the origin of observed ocean wave
spectra, and (ii) tropical cyclogenesis and the preconditioned
state for the development of hurricanes. Both studies involve a
similar dynamical core, namely, the rotating Boussinesq equations
with strong stratification. Previous theoretical progress toward
understanding ocean spectra has been made by considering exact
three-wave resonances under the weak turbulence paradigm. Here
the investigator studies new partial-differential equation models
including all three-wave interactions, thus capturing more
complete physics. Effects of rotation, stratification and
hydrostatic balance are deduced analytically through explicitly
derived, nonlinear coupling coefficients. Numerical simulations
characterize energy spectra and generation of shear. Adding
simplified cloud dynamics (condensation and evaporation of water)
to the Boussinesq core allows for investigation of the hurricane
embryo. The latter project involves numerical implementation and
exploration of a minimal, active moisture model including fast
waves, extending recent work using imposed heat sources to
incorporate moist processes within the context of balanced models
(excluding fast waves).

Inertia-gravity waves result from the earth's rotation and
density stratification of the atmosphere and oceans. The effects
of inertia-gravity waves are varied, for example, waves can
self-organize to form large-scale coherent structures widely
observed in nature, such as cyclones and/or anticyclones,
east-west jets, and horizontal shear layers. Yet there are
critically important flows for which the dynamical role of
inertia-gravity waves is yet to be described by a fully
self-consistent mathematical theory. The project addresses two
such fundamental application problems using a combination of
analytical and numerical calculations: (i) the scale distribution
of wave energy in the oceans, and (ii) tropical cyclogenesis
(also known as the hurricane embryo problem). In the oceans,
tidal and wind forcing generate internal gravity-wave breaking,
ultimately establishing the balance between small-scale mixing
and global circulation. For the problem of tropical
cyclogenesis, previous mathematical models have filtered out the
fast waves, and there is much to learn about the role of fast
waves for the emergence and stability of low-altitude cyclonic
vertical vorticity, leading ultimately to the formation of a
hurricane. The topics involve ocean mixing and ocean-atmosphere
interactions, which are important factors in climate.